Workshop on High Performance Computing and Communications and the National Challenge: Fall 1994: Washington, D.C

9408472 Davis This workshop will define new research directions needed to advance high-performance computing in the designated National Challenge areas: health care, education, environment, manufacturing. The workshop will focus on software issues that differ from those raised by the Grand Challenge problems. To assure concrete discussion, the workshop will focus on health care applications. Participants have been selected to provide broad representation across the high-performance computation community. Application experts will also participate. ***